Computability Theory and its Applications

In this project, the P.I. studies problems in both pure and
applied Computability Theory. The problems in pure computability
theory are part of the ongoing program to understand the structure of
the Turing Degrees. As for applied computability theory, the P.I.
applies methods from computability theory to study the effective
content and proof-theoretical strength of various areas of both
classical mathematics and foundations of mathematics. He concentrates
in problems related to linear orderings, but not exclusively, and also
works in effective randomness and computable model theory.

Computability Theory is the area of Logic that studies the notion
of algorithm. Its applications are based on the idea that problems
that can be solved using algorithms are simpler than the ones that
cannot. This is used in various ways to measure the complexity of
mathematical objects, theorems, sequences of zeros and ones, etc.. It
is usually the case that this analysis gives a better understanding of
the subject under study.